Research Initiation Award: Droplet Dispersion by Large Scale Structures in Axisymmetric Jets

Cecilia Richards Abstract The objective of this research is to investigate the effect of vortex dynamics on droplets dispersion, vaporization, and burning in round jets. The research will focus on the dispersion of drop and their vapor by large-scale vortical structures in nonreacting jet, and in reacting jets, and on the impact of droplet/eddy interaction on the reacting flow structure. An experimental study of a turbulent jet with point source droplet stream injection using planar imaging techniques, image analysis, and point measurements of droplet and gas phase statistics, will be performed. This research will yield insight on the effect of vortex dynamics on the structure and behavior of reacting two-phase flows, data from this study will be directly applicable to improved design of two-phase reacting devices, such as industrial furnaces, gas turbine combustors, and hazardous waste incinerators.